Development of a Filter-Analyzer Neutron Spectrometer at the National Institute of Standards and Technology

9512225 Klein A new, high intensity filter-analyzer neutron spectrometer (FANS) will be designed, constructed, and operated at the National Institute of Standards and Technology (NIST) by a consortium of scientists from the University of Pennsylvania, the University of California at Santa Barbara, NIST, Hughes Aircraft, DuPont, and Allied-Signal. The throughput and sensitivity of the new FANS will exceed by a factor of at least fifty that of a heavily oversubscribed prototype which is already unique in the US. When completed, FANS will be the most sensitive neutron spectrometer in the world for studies of vibrational modes in the 10-100 millielectron-volt range by inelastic scattering of neutrons. The FANS instrument will be used to study intra- and intermolecular vibrations in molecular crystals and liquids, polymers, guest-host systems such as hydrogen in metals and hydrocarbons in zeolites, to characterize novel forms of carbon such as fullerenes and tubules, and novel candidate molecules for environmentally safe refrigerants. %%% The development of the FANS will fill an urgent need of the country's scientific infrastructure. There are currently only two such instruments in the world, one in France and one prototype at NIST, and they are both heavily subscribed. The FANS will have a wide impact on molecular spectroscopy research, as current neutron facilities in the US are inadequate for studies of molecular dynamics. ***